Workshop on Coordinating Ocean Carbon Observations Worldwide

OCE-0245278

Recognizing the need for international coordination of ocean carbon observations, the SCOR-IOC Advisory Panel on Ocean CO2 and the IGBP-IHDP-WCRP Global Carbon Project have initiated a collaborative Pilot Project to (1) gather information about on-going and planned ocean carbon observation activities, (2) identify gaps and duplications in ocean carbon observations, (3) produce recommendations that optimize resources and highlight potential scientific benefits of a coordinated observation program, and (4) promote the integration of ocean carbon observations with appropriate atmospheric and/or terrestrial carbon activities. The information gathered through this collaborative process will be posted on a new Web site devoted to making the information accessible to scientists and policymakers worldwide.

The first activity of the Pilot Project will be a workshop to bring together individuals from different countries who make and use ocean carbon observations, to discuss coordination of underway pCO2 measurements and repeat hydrographic sections, and begin discussions of how these observations can contribute to ocean carbon modeling and research activities. This proposal is to fund the partial or full expenses for 50 individuals to participate in the workshop and to disseminate the results.